Phase Transitions in Magnetite and Nickel Sulphide-Selenide Systems

This research is focussed on two projects. The first part involves continued studies on magnetites and zinc-ferrites. The main thrust of this research is directed to the investigation of nickel sulphide-selenide systems. This material exhibits properties of a good insulator, a good metal, or a metal-insulator for x values of 0, 2, and 0.5, respectively. This property presumably is driven by electron correlation effects. The systems can be studied by varying the sulphide/selenide ratio while leaving the cation sublattice intact. The following studies are planned: growth of single crystals, followed by adjustments of stoichiometry, electrical measurements, magnetization investigations, specific heat studies, structural research, and optical measurements. The data acquisition is not just of intrinsic interest but is to be used to identify the changeover from the insulating state, through a narrow band correlated state, to the metal-insulated transition regime, and into the region of good metallic behavior, during which the lattice remains basically unaltered. The data thus serve as a test for current theories of electron transport in the various regimes.